SBIR Phase II: Minimally-Invasive Dexterous Manipulators

*** 9531896 Hatley This Small Business Innovation Research Phase II project is to design and prototype a dexterous robotic manipulator for applications such as minimally invasive surgery. The robotic manipulator will provide surgeons with a new and more dexterous tool for performing diagnostic and therapeutic procedures. The project has potential in a wide variety of commercial applications but especially in minimally invasive surgery, including suturing, dissection and retraction, in procedures such as removal of gall bladder and bowel resection. ***